Digital Goverment: Bringing Government and Citizens Together: A Metadata Extension Test-bed for the Kentucky Spatial Data Infrastructure (KYSDI) Clearinghouse

EIA-0091534
Francis J. Harvey
University of Kentucky

Digital Government: Bringing Government and Citizens Together: A Metadata Extension Test-bed for the Kentucky Spatial Data Infrastructure (KYSDI) Clearinghouse.

The planning grant will enable us to undertake research on developing a Metadata extension for spatial data integration involving citizens and government. We propose to focus on establishing the parameters for improving citizen involvement in the project and developing a prototype application to assess technical issues. These activities will be the basis for emphasizing four key themes: semantic interoperability, human-computer interaction, inter-agency collaboration, and citizen access in a revised submission to the digital government program.